Mathematical Sciences Scientific Computing Research Environments

DMS-9707673 The Department of Statistics at Case Western Reserve University will purchase computer equipment which will be dedicated to the support of research in the mathematical sciences. The equipment will be used for several research projects in mathematics, including in particular: inference and diagnostics for generalized linear mixed models, nonparametric inference including bump hunting problems, development and study of fractal and enhanced Burgers-KPZ hydrodynamic interface-growth models, projection pursuit and biased sampling, small area inference for random variables, Bayesian order restricted inference, spatial statistics and design of experiments for high dimensional problems.